CSR-EHS: A Ph.D. Student Forum on Deeply Embedded Real-Time Computing

This award provides NSF support to hold a Ph.D. student forum on Deeply Embedded Real-Time Computing to be held in Tucson, AZ, December 3-6, 2007, in conjunction with the IEEE Real-Time Systems Symposium in 2007 (RTSS 2007). The aims of the Ph.D. student forum are to promote student involvement in the emerging area of cyber-physical systems, to discuss research challenges, and to reward innovative research and application ideas in deeply embedded real-time computing systems.